Conference: Triangle Lectures in Combinatorics

The 24th Triangle Lectures in Combinatorics (TLC) will be held on March 23, 2024 on the campus of UNC Greensboro, in Greensboro, North Carolina. It will feature four speakers who are nationally recognized figures in combinatorics and closely related fields. The intellectual merit of the conference includes the dissemination of some of the most significant recent developments in combinatorics to the research community of the Southeastern United States and the fostering of research interactions among participants, leading to new research results. The conference also promotes the teaching and training of graduate students by exposing them to the perspectives of leading researchers as well as the broadening participation of underrepresented groups in mathematical research.

Future editions of the TLC will take place once per semester at different locations near the Triangle Research area. Further details, speakers, titles, and abstracts are posted on the conference website https://wp.math.ncsu.edu/tlc/ as they become available.